Some Problems in Curvature and Topology

ABSTRACT: DMS 0203164.

We have been studying problems in Riemannian geometry that
concern with interplays between curvature and topology, and
the major part of our work are about the controlled topology of
collapsed manifolds with sectional curvature bounded in absolute value and
applications to the global Riemannian geometry.
For the past three years, we have made substantial progresses
in this field pioneered by Cheeger-Gromov-Fukaya: we
established the isomorphism finiteness result for the higher homotopy groups,
the diffeomorphism finiteness result for a certain class of manifolds, and the
convergence of collapsing sequences in this class. We have
made a progress on investigating some rigidity phenomena
for the class of closed manifolds of non-positive sectional
which are not locally symmetric spaces. We have made a progress
in the homeomorphism classification of positively curved manifolds
whose isometry group contains a torus of large rank, and extend
this result to the larger class of manifolds which only admit
isometric discrete abelian group actions. We will continue our
programs in these fields in the near future that
represents a continuation of the work proposed three years
ago for NSF Grant DMS 9971360.

One of the most important developments in Riemannian geometry
in the last two decades is our understanding of the Riemannian
manifolds which appear to be smaller than
their actual dimension (i.e collapsed). For instance, the surface
of a very thin donuts looks like a circle while whose curvature and diameter are
bounded. Our progress is amplified by the amazing fact that
among the manifolds whose curvature and diameter are bounded, all
but finitely many appear to be smaller than their actual dimension.